Hydrogeology Experiments in the Ocean Drilling Program, 1988-1990

Downhole measurements and logging have proven to be an essential component of the scientific operations of the Ocean Drilling Program. One of the most significant scientific successes of the first two years of ODP has been the extensive programs of downhole geophysical measurements conducted during Legs 102, 109, and 111 in holes that penetrate deep into the oceanic crust. Data from these holes has been used to resolve the physical, chemical, and hydrogeological state of the oceanic crust and allow data on samples from the hole to be extrapolated to the regional scale. The present award will support Dr. Becker at the University of Miami to undertake a series of hydrogeology experiments during the next two years of drilling. The experiments include a drillstring packer which allows sections of the hole to be isolated and examined for fluid flow; a large-scale resistivity experiment to examine electrical properties of crustal rock; and, flowmeter experiments to monitor fluid flow into crustal holes. These experiments will provide essential data on the basic properties of the crust (permeability, porosity, and pore pressure) which control the movement of crustal fluids in the oceanic crust.